CC* Integration: Regional Embedded Cloud for As-a-Service Transformation (RECAST)

Science DMZs (SDMZ) have been widely deployed in the Research and Education networking community and recognized
as a global best practice for supporting cyberinfrastructure and big data applications. Despite innovations
in performance, security, and management, the SDMZs remain focused on the
support of big data projects and cyberinfrastructure. It remains difficult to create physical "disk
to disk" or virtual "scientist to scientist" connections. Researchers are increasingly interested
in an emerging class of hybrid services focused on turnkey, on-demand integration of private/public
clouds, cyberinfrastructure, scientific resources, and high performance networks.

The RECAST project will develop and deploy a regional based Software Defined Science
DMZ (SD-SDMZ) as a mechanism to provide flexible edge services that include traditional data
transfer functions. RECAST leverages state-of-the-art Cloud and Software-defined networking technologies to transform
an SDMZ -- that was historically focused on high-speed data transfer -- into a Software Defined Infrastructure that offers
compute and network services in a fully virtualized, programmable and orchestrated fashion. Built upon technologies similar to those
used in modern data centers, this "cloudified SDMZ" will provide a scalable, multi-tenant environment, where
each user or user group can allocate dedicated resources and use the resources in an isolated,
Independent, and elastic fashion. Embedding this resource in the University of Maryland Mid-Atlantic
Crossroads regional network will allow the SD-SDMZ to leverage rich connectivity to advance
cyberinfrastructure to provide these new and advanced services.